"The Kinetic City Super Crew": A Scientific Adventure Show for Children's Radio

Proposal No. ESIE 93-55602 Proposal Name: KINETIC CITY SUPER CREW - A SCIENTIFIC ADVENTURE SHOW FOR CHILDREN'S RADIO PI: Jerry Bell Amount: $3,050,225 payable in the following fiscal years: FY 94 $1,150,250 FY 95 $1,090,338 FY 96 $ 809,637 ABSTRACT The American Association for the Advancement of Science (AAAS) will produce and distribute a half-hour science adventure show for weekly broadcast, primarily on commercial children's radio stations. The series, "The Kinetic City Super Crew," is targeted at children 8-10 years old with an emphasis on urban children, girls, minorities, and children with disabilities. The series of 92 programs also will be designed for family listening. The programs revolve around a drama led by child actors and include discussions with scientists and information for at-home experiments. The Co-Principal Investigators will be Jerry Bell and Gerald Wheeler. Bell is Program Director for Science, Mathematics, and Technology Education at AAAS and will be responsible for overall management of the project. Wheeler is Program Director for the Public Understanding of Science and Technology and will serve as the Science Content Director for the programs. There also will be a Science Content Team (consisting of Bell, Shirley Malcom and Andrew Ahlgren) that will work closely with Wheeler, the production staff, and the advisors to review show themes, scientists to be interviewed, overall content, and to serve as arbiters for questions related to their respective fields. Bob Hirshon will serve as Executive Produce/Project Director and John Keefe will be Senior Producer.